CPS: Small: Towards robust cyber-physical systems

The objective of this research is to develop the theoretical foundations of robust
cyber-physical systems. Robustness is the property ensuring that slight
perturbations in the cyber, physical, or in the interaction between the cyber and
the physical components, e.g., noise in sensor measurements, causes only slight
changes in the system execution. While it is theoretically possible to enumerate
all possible faults that can occur in a cyber-physical system and to design
software components that correctly handle all such faults, the resulting
specifications would be unwieldy and difficult to understand or verify. Instead, this
project investigates the design of software components that guarantee
robustness of cyber-physical systems with respect to unmodeled faults. The
approach consist in abstracting and generalizing several key ideas from robust
control theory to cyber-physical systems.

The project's intellectual merit is divided in two parts. The first part consists in
defining a notion of robustness for cyber-physical systems relying on finite-state
abstractions of the physical world retaining metric information about physical
quantities. The second part consists in developing the methods and tools for
automatically synthesizing software modules enforcing desired specifications in a
robust manner.

The tools and techniques developed in this project will significantly enhance our
ability to produce robust cyber-physical systems and thus have a broad impact in
several application areas transcending computer science and control
engineering. Moreover, the broader impact of the proposed research is amplified
by explicitly addressing the lack of robustness in legacy software through the
development of robustifying software patches. To enhance the transfer of the
research results to industry, the PIs and the Electrical Engineering Office of
Industrial Relations will host a workshop for the local industry on robust cyber-
physical systems.